SBIR Phase I: Robust autonomy for robotics-based data collection in surface water environments

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project lies in the increase in efficiency and reduction in cost of gathering information in surface water environments using unmanned surface vehicles (USVs). USVs have the potential to increase accessibility to bodies of water, enhance coverage, and make data collection safer by removing humans from the task. However, to fully realize the potential of USVs for gathering information, a level of autonomy with minimal need for human supervision and intervention is required. The development of this technology will open the door to the pervasive use of USVs for environmental data collection, and ultimately benefit society through: i) more information upon which to base decisions about resource management and environmental policy; ii) higher frequency of data collection activities through reduced cost; and iii) increased safety by keeping human personnel out of harsh environments.

This Small Business Innovation Research (SBIR) Phase I project will lay the foundation for a transformative approach to environmental data collection in surface waters. The intellectual merit of this project lies in addressing technical challenges that will enable unmanned surface vehicles (USVs) to effectively navigate autonomously in complex surface waters that may contain a range of diverse obstacles, which would otherwise be inaccessible or at best require a high degree of human supervision. This will be achieved by advancing the state-of-the-art in computer vision and machine learning toward intelligent obstacle characterization. The proposed framework interprets images or video of obstacles to extract salient features, such as flexibility or rigidity, through the innovative use of machine learning, dimensionality reduction, and tools borrowed from the analysis of collective behavior. This extra layer of information provided through the proposed framework represents a significant advancement in computer vision, which offers direct benefits to environmental monitoring and data collection by empowering USVs with new unmanned capabilities.